Mathematical Sciences: Geometry of Submanifolds

The principal investigator will study the geometry of submanifolds of R^n with simple local invariants, taut embeddings under Lie sphere transformations, and the geometry of the space of isometric immersions of hyperbolic n-space into odd- dimensional Euclidean space. Submanifolds are mathematician's generalizations of surfaces which lie in ordinary three-dimensional space. Examples of two- dimensional submanifolds are spheres, the skin of an inner tube, and infinitely-long cylinders. The three-dimensional space in which we live is a submanifold of Einstein's four-dimensional space-time. The principal investigator will study several deep problems which concern the way these submanifolds lie in their ambient spaces.